Mathematical Sciences: Recursion Theory and Set Theory

Martin and Steel will work in set theory, and more specifically on inner model theory and on strong forms of determinacy. Moschovakis will work in the theory of algorithms and its applications to the foundations of mathematical computer science. The former is basic to our understanding of the axioms of set theory underlying all mathematics. The latter has obvious relevance to less philosophical concerns.